Second International Meeting of the Society for Behavioral Neuroendocrinology: June 10 thru June 13, 1998: Altanta, GA

This award subsidizes the registration fees to allow graduate students to attend the 1998 annual meeting of the Society for Behavioral Neuroendocrinology, a new society dealing with research on hormonal interactions with brain and behavior. The meetings foster cross-disciplinary discussions of topics such as behavioral ecology, chronobiology, developmental and physiological psychology, genetics, neuroscience and cellular and molecular endocrinology. The society is in a period of rapid growth. This support will have an impact on exposing a number of students to such important cross-disciplinary research, which will be important to shaping their careers.